Collaborative Research PEEC: 2+2+2+Infinity: Pipeline for Tribal Pre-Engineering to Society

This collaboration among TCUP colleges Cankdeska Cikana Community College Community
College, CCCC, Ft. Berthold Community College, FBCC, Turtle Mountain Community College ,
TMCC, and Sitting Bull College, SBC, and North Dakota State University, NDSU, is the
culmination of more than 11 years of active engagement in STEM education on the reservation,
including a year-long academic sabbatical at TMCC by an engineering professor. It supports a
tribal college vision of expanded life-choices for reservation residents that could provide more
technical competency for tribal decision-making, infrastructure improvement and the
opportunity for personal and tribal advancement without loss of cultural heritage. For NDSU
the benefits would include expanded participation of culturally diverse students, shared
fulfillment of the 1862/1994 land grant mission, improved faculty-student communication and
interaction and expansion of the talent pool entering STEM professions. The heart of the
proposal is the interaction of tribal high school, tribal college, mainstream University and
engineering profession stakeholders to facilitate the recruitment, education and support of
tribal students to acquire and hone the skills that will allow them to enter the engineering
profession or contribute in some other fashion to their communities and the nation. The
proposal will accomplish this vision by impacting students through interactions with faculty/
staff, curriculum and supporting functions/agencies. All of this will be accomplished in a
culturally supportive fashion.